Marine Technician Support

Knight 9400598 Skidaway Institute of Oceanography requests renewed funding for shipboard technician activities associated with the research vessel BLUE FIN, a 72-foot vessel. The BLUE FIN is owned and operated by Skidaway. In calendar year 1994, the BLUE FIN will support a total of 72 days of NSF-funded research, primarily in the coastal waters of Georgia, Florida and South Carolina. Skidaway technicians will be responsible for operating and repairing instruments while at sea, maintaining instruments ashore and assisting with scientific operations necessary before and after cruises.